Genetic and Cell Biological Characterization of Trio and Amalgam: Two New Enhancers of Abl

0090239
Liebl

Liebl and Seeger will use the fruit fly model to detail some of the
molecular machinery involved in creating a functional, correctly wired
central nervous system during embryogenesis. They are investigating
molecular events that occur at the tip of growing axons as they navigate
through the central nerve cord and out to innervate the body. Specifically
they will address whether an established key player, the Abl protein, works
in concert with two other newly identified proteins, Trio and Amalgam.
Genetic experiments from the Liebl and Seeger labs have shown suggestive
interactions between Abl and Trio, and Abl and Amalgam. Using cell
biological, biochemical and further genetic methods, they ask whether these
proteins have any direct or indirect physical and/or biochemical
interaction.

This work will clearly deepen our understanding of the different roles the
Abl protein plays in axon tips as the central nervous system is first
forming. Much similar work from fruit fly studies has been shown to be
directly analogous to processes that occur in mammalian nervous system
development. Thus by using fruit flies to pursue such fundamental
questions as establishing the key players in central nervous system
development and understanding their interactions, these researchers are
likely laying the groundwork for a fuller understanding of the complex
processes that occur during mammalian central nervous system development.